Acquisition of a Transmission Electron Microscope for Research and Research Training in the Liberal Arts College Environment

Five natural science departments and programs at Trinity College (Hartford CT) join to request matching funds from the NSF to purchase a Transmission Electron Microscope (TEM) and ancillary equipment, in order to incorporate their use into faculty research, undergraduate research training, and collaborative faculty/student research at the college. As a highly-selective, secular, liberal-arts institution, Trinity College maintains a long-standing commitment both to quality undergraduate education and to faculty research. Trinity's laboratory facilities are excellent, and its science faculty is highly productive in research and scholarship. Nevertheless, until last year the college entirely lacked electron microscope facilities. Drawing on its own resmurces, the college has now procured and installed both a scanning electron microscope (SEM) and an atomic force microscope (AFM), and has located and designed space for a TEM facility. The college has made acquisition of the TEM a top priority, and requests NSF assistance in order to make this acquisition a reality. The presence of a TEM on campus will have a multitude of benefits. It will (1) provide an important instrument needed in research by existing faculty; (2) substantially increase the opportunities for research by Trinity undergraduates; (3) permit development of upper-level courses that provide training in EM techniques; (4) allow incorporation of EM technology into several existing laboratory courses that deal with research methods; and (S) help the college recruit science faculty for several key positions that will become vacant during the next few years. It should also help the college in recruitment of undergraduates to programs in the natural sciences and engineering. TEM capabilities are needed for investigative research currently being conducted by nine members of the science faculty in five departments/ programs: Biolog y, Engineering, Neuroscience, Chemistry, and Physics. Each of these faculty members would expect to develop collaborative student/ faculty research projects involving TEM. In addition, acquisition of TEM technology will permit development of two new research-oriented courses ("Electron Microscopy" and "Principles of Crystallography and Transmission Electron Microscopy") and the addition of new laboratory exercises for at least ten upper-level science courses. Most students majoring in the sciences at Trinity choose careers in scientific research or the health professions. Consequently, introduction of EM technology will have a substantial impact on the college's ability to attract and train students who will be research scientists and medical professionals well into the next century. Trinity College is committed to providing 50% matching funds.